CAREER: Theory and Practice of Applied Geometric Computing

Computational geometry arose out of the need for many
science and engineering applications of geometric computing.
Over the last two decades, the field has emerged as a rich,
mature, and mathematically rigorous discipline. However,
despite its impressive achievements well-received in the
theoretical computer science community, computational
geometry has had limited impact in the practical areas of
geometric computing. As advocated by the recent
Computational Geometry Task Force Report, it is important to
reorient the field towards providing more practical
solutions to the specific needs of the applications that use
geometric computing, and towards focusing on new
"bottleneck" problems of identifiably important practical
areas. In this proposed career plan, we intend to develop
our research career toward this goal, by working on the full
computational pipelines of some important real-world
applications of geo-metric computing, including air traffic
management (conflict prediction), graphics and scientific
visualization (I/O-efficient isosurface extraction, I/O-
efficient direct volume rendering, external-memory view-
dependent surface simplification), and manufacturing
(maximum scatter traveling salesperson problem (TSP)). An
important aspect of the work is to examine the full
computational pipelines of the practical applications to
identify and formulate critical tasks into new algorithmic
questions, extend computational geometry methodologies to
devise novel solutions, and finally implement and integrate
the developed algorithms into the pipelines to evaluate
their practical ef-fectiveness in the original real-life
applications. Key components of the plan are the expected
rich interactions between theory and practice, and the aim
of designing simple, easy-to-implement geometric algorithms
that are efficient both practically and theoretically. In
the long term, we expect to be able to have real impact on
these important practical areas of geometric computing, and
at the same time enrich the knowledge body of the field of
computational geometry. The proposed educational plan
includes introduction of new courses, involvement of both
graduate and undergraduate students in the proposed research
projects, participation in an outreach program, and further
development of a research laboratory.